Collaborative Research: An Inclination Correction for the Valle Group Strata: Determining the Cretaceous Paleolatitude of the Southern Peninsular Ranges Terrane

9903259
Smith

A shallow magnetic inclination has been reported in paleomagnetic studies of numerous tectono stratigraphic terranes distributed along Western North America. These shallow inclinations have been interpreted as requiring significant northward translation since acquisition of the magnetic signature. However, laboratory compaction studies as well or sedimentary rocks indicate that shallow inclinations in some kinds of sedimentary rocks result from compaction. This project will examine this possibility for the Valle group in Baja Mexico that previously has been used to argue for significant northward translation. Results should clarify the translation history of the peninsular Range terrane and demonstrate the role of inclination shallowing in sedimentary rocks.